Computing Clusters and Computational Grids for Scientific Computing

The Workshop on Computing Clusters and Computational Grids for Scientific Computing that we propose aims to address this unprecedented situation by providing a forum for creative dialogue between leading edge researchers in the field in order to produce the kind of coordinated and penetrating analysis that can help translate momentous developments into momentous benefits for the scientific community.